U.S.-China Cooperative Research: Economic Change and Risk Management Among Pastoralists in Qinghai Province, China

9724915 Levine This award supports a research planning visit in preparation for long-term collaborative anthropological field research in Qinghai Province, China. The goals of the planning visit are to identify three communities for future study and to refine research hypotheses related to the integration of nomadic pastoralists into China's economy and to the processes of economic differentiation and the ways in which households adapt to periods of economic variability.